Factors Modulating Responses to Nerve Growth Factor

During maturation and aging, the nervous system exhibits a progressive decline in plasticity and capacity for repair. This decline is similar to the decline in responsiveness with the age of target cells to nerve growth factor (NGF). In these cells, NGF is specifically bound by cell surface receptors, internalized, transported to the cell body and degraded in lysosomal organelles. Dr. Claude will begin investigation of these steps in order to gain a better understanding of the mechanism of action of NGF, and of the ways in which target cell response is modified by age and by other factors, including glucocorticoid hormones. The experiments will make use of dissociated cell cultures of adrenal chromaffin cells from rats of different ages. These cells respond to NGF with neuritic outgrowth. Dr. Claude will monitor the number and distribution of NGF receptors on the surface of the target cells as a function of (1) the age of the cell, and (2) the presence of glucocorticoid hormones. The techniques to be used include neural tissue culture, electron microscopy (EM), and cell surface labelling with visible markers (colloidal gold). The information to be gained from these experiments will help us to understand the mechanism of action of NGF, and provide insights into some of the changes that neurons undergo during development, maturation and aging.